Mathematical Modeling of Depth/Cake Filtration

CTS-9412747 J. Peddieson, Tennessee Technological Institute This is an Engineering Faculty Internship (EFI), proposed in response to the initiative Grant Opportunities for Academic Research with Industry (GOALI). The P. I. will visit Fleetguard, Inc. (Tennessee), and collaborate with that company to a research project on depth/cake filtration. Filter cake formation on a clogging filter medium and the depth filtration within the filter medium due to particle penetration will be modeled using the industrial site. The interaction with the industrial partner will help to identify the critical technical issues, improve the method and it verification. It is expected that the resulted approach to predict depth/cake filtration will be applied in the areas of chemical manufacturing, petroleum refining and water purification. The awareness of the P. I. and his student to industrial needs may lead to are direction of the research. ***